Non-Reciprocal Response in Femtosecond Ring Lasers

9219450 Diels Our preliminary measurements have shown that the two counterpropgating beams of a ring laser are not coupled in frequency. The implication is that the fs (femtosecond) ring laser is an exceptionally sensitive detector for minute (less than 10-12 m) optical path difference between the counterpropagating beams. Such path difference can be induced by rotation rate), by electro-optic effect (a phase shift of the order of 10-6 can be detected with fs temporal resolution), by motion (Fresnel drag measurements), by magnetic fields (Faraday effect). We propose to explopit these unique properties for various applications, such as detection of small motion, study of the dynamics of ultrafast detectors and circuits, and coherent interactions with 3 level (A of V configuration) systems. We will also apply our understanding of the absence of coupling between counterpropagating modes in the fs dye laser, to develop mode-locked semiconductor ring laser with similar properties. *** j e j ! ! F j j ( Times New Roman Symbol & Arial " h r 2 2 ) 1 Cassandra Queen Cassandra Queen